Connection to NSFNet

This award enables Rose.Hulman to connect to NSFNET through a 56,000 bit per second link to the University of Illinois. Access to NSFNET provides the faculty and students with access to supercomputer, data archives, a variety of network gateways, automated library catalogs, and a wide range of software. Primary applications include file transfers, electronic mail communication between local and remote researchers, and remote login to and use of supercompters and other research facilities.